Conference: Quality and Productivity Research Conference - Statistics, Deep Learning, and the People Side of Process

The 39th Quality and Productivity Research Conference (QPRC) will be hosted by the University of Houston (UH) in Houston, Texas from June 6-8, 2023. It is the main annual event for the Quality and Productivity Section of the American Statistical Association, and it will consider data science and statistics related topics though presentations, poster sessions, a technical tour, and a one-day short course. Because billions of data sets are collected, processed, and analyzed on a daily basis in virtually every environment known, with an increasing number of data-based decisions being made that have real-world consequences for individuals and society, the data science and statistics community must keep pace with the rapid growth and variety of collected data and provide up-to-date methodologies and guidance to every applied field that utilizes data. QPRC aims to support knowledge sharing regarding data science and statistics to enable researchers and practitioners to understand the impact of data-based systems and decisions, and avoid, or at least detect and mitigate, unintended adverse consequences. It will provide a unique opportunity for attendees to meet, exchange ideas and experiences, and form collaborations. Through participation in QPRC students will gain access to invaluable learning experiences and networking opportunities with other conference attendees.

The conference theme is “Statistics, Deep Learning & the People Side of Process,” and it will include 18 invited paper sessions, four to six contributed sessions, poster sessions, a technical tour, and a one-day short course (on June 5). QPRC has the potential to advance knowledge and understanding of topics related to data science and statistics by providing a unique opportunity for statisticians, data scientists, quantitative analysts, researchers, and practitioners to discuss the current progress made in computer-intensive fields such as machine learning, facial recognition, and so forth, and exchange novel ideas and experiences in working with modern big data. Hence, this conference has the potential to 1) disseminate new methods and data-driven approaches, the evaluation of previous findings, and the validation of theoretical approaches, 2) stimulate further investigations regarding the benefits of working with big, multidimensional data, both structured and unstructured, and 3) increase the awareness of the need to use big data ethically and to address the bias that may result from the automated collection and analysis of large datasets. In addition, QPRC has the potential to benefit society in several ways. First, it provides the opportunity for attendees to learn and reframe their understanding of concepts related to data science and statistics. Second, QPRC will promote the responsible deployment and interpretation of data science and statistical methods in a variety of applied areas. Third, to disseminate the knowledge from the conference to the broader community, QPRC presenters will be invited to submit their work for publication in a special issue of the Journal of Applied Stochastic Models in Business and Industry. Fourth, to broaden the participation of underrepresented groups (i.e., women, racial/ethnic minorities, etc.) in science, technology, engineering, and mathematics (STEM) disciplines, funding is requested to support graduate students especially those in underrepresented groups from U.S. institutions to participate in QPRC. The conference website is www.uh.edu/qprc2023.